CAREER: Aligned Carbon Nanotube Composite Array as Permeable Membrane for Selective Chemical Separations and Sensing

Abstract

Proposal Title: CAREER: Aligned Carbon Nanotube Composite Arrays as Permeable Membranes for Selective Chemical Separations and Sensing
Proposal Number: CTS-0348544
Principal Investigator: Bruce Hinds
Institution: University of Kentucky

This project is aimed at the development of highly selective affinity membranes based
on aligned carbon nanotubes embedded in a polymer film. This concept could lead to
the development of membranes with enhanced selectivity for numerous applications.
The growth of oriented carbon nanotubes by thermal CVD and functionalization of the
carbon nanotube tips with carboxylic acid groups have been demonstrated. The
carboxylic acid groups at the ends of the carbon nanotubes can be functionalized,
allowing for high selectivity in an affinity membrane. Measurements of transport
properties of nitrogen gas and aqueous ionic species through polymer-coated carbon
nanotube structures have been performed; these measurements demonstrated the
molecular sieving character of the membranes. In terms of the broader impacts, the
educational program will include the development of new courses and laboratories
aimed at introducing nanotechnology to undergraduates. Success in this research effort
will enable a new class of well controlled nanoscale pore structures for selective
chemical separations, sensors, drug delivery, and environmental remediation.